RIA: Computer Modeling and Examination of 3D Inelastic Beam-Column Joint Behavior in Steel Structures

Recent trends in building design and construction are increasing the need to model structural behavior more realistically. One area of concern is evaluation of inelastic beam-column joint behavior and its influence on structural response. In the proposed research, a finite element analysis procedure for including joint flexibility in the analysis and design of 3D frame structures will be developed. This procedure will be capable of geometric or material nonlinear analysis, or both. Inelastic cyclic behavior will be handled using multi-parameter force-space bounding surface methods extended from classical plasticity. Results of existing experimental research will be utilized in an interactive system for assigning joint behavior characteristics to the model. This program will be used for studying joint flexibility in 2D and 3D framed structures, and developing practical guidelines for design. The methods developed will to some degree also be applicable to reinforced concrete and composite systems.